Topics in Risk: Self-Normalization, Copulas , Boundary Crossing and Applications

The investigator studies three broadly based areas of inquiry
involving dependent observations. In the first area he develops
accurate probabilistic tools for the study of self-normalized
estimators in dependent variables. In particular he explores the
intrinsic properties of long range dependence on the basis of
the observed data. In the second area he develops copula based
estimators for the probability of rare events in dependent data
and introduces an approach for assessing the quality of models
used in the prediction of these events. In the third area he
develops a (probabilistically based) historical approach to
boundary crossing under imperfect information and develops
estimates for the expected time it takes a process to hit a boundary.
The general nature of his approach provides estimates on ``average
times'' rather than ``actual times''. Sensitivity studies are being
performed to quantify the robustness of the estimates. The
methodology is being calibrated by using extensive data banks on
natural phenomena as well as by the use of computer intensive general
circulation models.

The investigator is developing tools to aid in the understanding of
the connections between historical information and the average time
for the occurrence of natural events. He works closely with regulators
in the development of general quality control tools with particular
application to banking. His work is enriched by close interactions
with graduate students contributing to the training and mentoring of a
diverse group of scientists knowledgeable in the new approaches and
able to formulate, develop and solve the problems they will encounter
throughout their academic, public or industrial careers. His work has
the potential of improving public confidence in banking and financial
institutions as well as in enhancing the understanding of the role of
historical data in the management of natural resources and risks.